Dynamic Regulation of the Cell Cycle by the Proliferation Control (Rb) and Death Control (p53) Oncogenes

Abstract

Award: DMS-0342283
Principal Investigator: Paul Brazhnik

This project aims to elucidate dynamical principles and to
formulate mathematical models of control mechanisms associated
with certain genes in mammalian cells, in order to organize
available experimental information into a systematic,
quantitative framework and to evaluate the ability of current
hypotheses to explain experimentally observed phenotypes. In
particular, the principal investigator and collaborators will
investigate cell proliferation control via Rb-E2F, and DNA repair
and cell death control via p53-Mdm2. Models of the behavior of
these biological modules can be tested against a substantial
supply of available experimental data, and within the models one
can test and refine ideas about mechanisms and pathways, perhaps
exploring scenarios which are hard to test in real molecular
biology experiments.

Mathematical methodologies useful in exploring important problems
in molecular cell biology include the theories of dynamical
systems and bifurcation. Dynamical systems are models for
natural phenomena that change continuously with time, while
bifurcation theory studies models of phenomena that may change
dramatically in an instant after evolving continuously for a
while (think of a balloon popping after it gradually inflates to
an overfull state). Cellular processes regulated by particular
genes can exhibit both steady and suddenly changing behavior, and
the principal investigator and collaborators are studying
important cellular cycles (proliferation, plus DNA repair and
death control) with mathematical and computational tools. This
grant is made under the Joint DMS/NIGMS Initiative to Support
Research Grants in the Area of Mathematical Biology. This is a
joint competition sponsored by the Division of Mathematical
Sciences and the Directorate for Biological Sciences at the
National Science Foundation and the National Institute of General
Medical Sciences (NIGMS) at the National Institutes of Health,
and the present award is funded jointly by NSF/BIO and NSF/DMS.